Development of an Optimized Electron Microprobe for Geochronologic and Trace Element Analysis

0004077
Williams

This award provides partial funding support for the development of a new, high-resolution, geochronological electron microprobe X-ray analyzer to be installed and operated in the Department of Geosciences at the University of Massachusetts, Amherst. The project involves development of new X-ray spectrometer systems, electron gun and column elements, new automated sample stage hardware, as well as new software for X-ray mapping and quantitative analysis aimed at improved trace element analytical precision and spatial resolution. The new instrumentation package will enable application of a new age-dating technique capable of resolving the complex thermochronology of metamorphic provinces. Development of the new electron microprobe will be a collaboration between the University of Massachusetts and a manufacturer of electron beam instruments, with both parties contributing cost sharing.
***